Dynamics and Stability of Flames

This research program emphasizes the study of unsteady nonplanar modes of combustion. The objective of the program is to investigate the effects of preferential diffusion, thermal expansion, stretching, flame front curvature, viscosity, and heat loss of the limites and mechanisms for the generation, suppression, and sustenance of flame front corrugations. Three classes of problems are examined: (1) burner attached flames, (2) stretched flames in stagnation point flow and counterflow configurations, and (3) spherically expanding flames. The methods employed are asymptotic and perturbation techniques as well as methods of stability and bifurcation theory.